Network and Distributed System Security Symposium 2022

This award supports student participation in the 2022 Network and Distributed System Security (NDSS) Symposium held in person in San Diego CA in April 2022. NDSS brings together innovative and forward-thinking members of the Internet community who research, design, develop, and deploy the technologies that define network and distributed system security. This grant enables career development and learning opportunities for US-based and/or US citizen graduate students. Attending conferences is an important component of graduate school education for our society's future computer security researchers. Students have the opportunity to discuss leading edge research with world-class computer security researchers, and establish networks, connections, and mentoring relationships that will serve them well during their research careers.